National Science Foundation Young Investigator Forum on Environmental Engineering Research and Education, Duke University, Spring 1997

Pierce 9626774 This is an award to support conduct of a conference to consider advances in the knowledge-base supporting environmental engineering practice that have been made by investigators who have been supported by the National Science Foundation's "young investigator" programs. Starting with the Presidential Young Investigators (PYI) initiative in 1984, NSF has supported a total of 36 PYI's, NYI's (National Science Foundation Young Investigators) and PFF's (Presidential Faculty Fellows) for a total investment including matching funds from industry of almost $5 million. The diversity of research that has been conducted by these investigators reflects the program's objectives to restore contaminated environmental resources to useful quality and to reduce adverse effects of solid, liquid and gaseous discharges into land, water and air that impair their usefulness. The product of this conference is expected to be used in planning operation of the Environmental Engineering Research program as it addresses outstanding issues in environmental engineering practice. Results are also expected to assist in advancing the National Science Foundation's commitment to the core strategy of integrating research and education as articulated in its strategic plan.